EAGER: Protein-Metallic Nanoparticles for Biosensing and Targeted Cell Ablation

1107176
Spano

The goals of this project are: 1) to construct an innovative proteinbased
nanometer-sized self-assembling delivery system ("adaptosome") containing
metal particles that will be used for specific cell targeting and 2) to characterize and
refine these structures by Raman spectroscopy. The Localized Surface Plasmon (LSP)
and Surface enhanced Raman Scattering (SERS) properties of these metal-protein
hybrid nanoparticles will be exploited for their inherent signal amplification and
transduction properties. These properties have direct application for molecule and cell
identification and for non-destructive sensing. The adaptosome will be a superior
molecular probe capable of precise target cell identification in tissues. The adaptosome
can be used for local inactivation and degradation of targeted molecules and cells. To
achieve these goals a new protein shell based on in vitro self-assembling gene transfer
agent (GTA) prohead system will be constructed and modified with the peptides
designed to mediate specific attachment to, uptake into, and movement across cell
membranes. Highly sensitive molecule identification will be accomplished by monitoring
the vibrational signatures in the local tissue/cellular environment of the particles when
bound to the target. Inactivation of target cells by visible and near IR light when it is
needed will be possible.

Experimental analyses of the formation and propagation of local electromagnetic
fields in specific biological environments will allow for rational construction of protein shells
and precise selection of nanoparticle size and structure. Spectroscopic testing of the
constructed adaptosomes will be performed both in vitro and in situ to optimize the
structure of the protein shell in the generation of an LSP and, more specifically, to
elucidate the effect of the internal structural organization and pattern of the protein on the
metal nanoparticles. Information gathered from modeling and spectroscopic analysis will
substantially accelerate the proposed research by a priori elimination of non-working
structures and will be used to refine the design principles during construction of the
particles.

Intellectual Merit: The members of this team bring to bear expertise in separate
disciplines and will interact in a direct, cohesive way. This team has collaborated
successfully for several years on the generation of bio-inspired devices for energy
generation. The work described in this proposal will lead to the construction of an
innovative biosensor and drug delivery system based on protein encapsulated metallic
nanoparticles. The product of the work itself will have its most direct application in the
development of chemical and biological sensors and cancer therapy, through cellspecific
targeting. It will also impact areas of modeling of bio-inorganic interfaces,
mathematical optimization theory, and in the physical chemistry of protein-nanoparticle
assembly and interaction.

Broader Impact: This proposal is focused on a major unsolved problem in the current
field of chemical and biological defense and in medicine, namely how to target
biosensors or therapeutic agents to tissues and specific cells. Construction of this cell
target-specific probe capable of delivery of a therapeutic agent will open the door to
practical application of innovative principles of chemical and biological sensing and will
facilitate exploration of new avenues in patient-addressed personalized medicine. The
strategy of the utilization of metallic nanoparticles and their inherent SERS diagnostics
that accompanies them will lead to the development of a sub-cellular labeling system
with greatly increased sensitivity and versatility. The proposed system will allow for
simultaneous identification of a non-predefined unlimited number of molecules (including
previously unknown targets) based on their Raman signature. The knowledge that will
be gained from developing the ideas presented in this project will contribute broadly to
several areas in the emerging fields of nanomedicine, protein-metal interactions,
nanoplasmonics, and nanobiology.